Carbonyl Sulfide Measurements in the Deep West Antarctic Ice Sheet Divide Ice Core

Aydin/1043780
This award supports the analysis of the trace gas carbonyl sulfide (COS) in a deep ice core from West Antarctic Ice Sheet Divide (WAIS-D), Antarctica. COS is the most abundant sulfur gas in the troposphere and a precursor of stratospheric sulfate. It has a large terrestrial COS sink that is tightly coupled to the photosynthetic uptake of atmospheric carbon dioxide (CO2). The primary goal of this project is to develop high a resolution Holocene record of COS from the WAIS-D 06A ice core. The main objectives are 1) to assess the natural variability of COS and the extent to which its atmospheric variability was influenced by climate variability, and 2) to examine the relationship between changes in atmospheric COS and CO2. This project also includes low-resolution sampling and analysis of COS from 10,000-30,000 yrs BP, covering the transition from the Last Glacial Maximum into the early Holocene. The goal of this work is to assess the stability of COS in ice core air over long time scales and to establish the COS levels during the last glacial maximum and the magnitude of the change between glacial and interglacial conditions. The results of this work will be disseminated via peer-review publications and will contribute to environmental assessments such as the WMO Stratospheric Ozone Assessment and IPCC Climate Assessment. This project will support a PhD student and undergraduate researcher in the Department of Earth System Science at the University of California, Irvine, and will create summer research opportunities for undergraduates from non-research active Universities.